Acquisition of Computer Equipment for an Advanced Computational Facility

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Duquesne University will purchase hardware and software to implement a Beowulf computer cluster. This equipment will enhance research in a variety of areas including a) development of simulation code; studies of b) substrates at solid/liquid interfaces; c) interactions between substrates & receptors; and d) metal-dielectric interfaces. The investigators will also investigate instantaneous normal mode theory of vibrational spectroscopy; Brownian dynamics simulations of proteins at interfaces; and carry out simulations of densification processes.

A workstation network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing.